Improved Laboratory Instruction in Biology and Chemistry with Modern Ultraviolet-Visible Spectroscopy

A modern ultraviolet-visible recording spectrophotometer and an electronic analytical balance are used to improve courses in cell physiology and organic chemistry. In cell physiology experiments in protein characterization, enzyme kinetics, DNA quantitation, and chromatographic purification and assay of egg white lysozyme are upgraded. In the organic chemistry laboratory ultraviolet-visible spectroscopy enhances student understanding of the relationship of structure to spectra, the determination of the distribution of coefficients of ketones, and the study of the spectral consequences of hydrogen bonding. The grantee provides funds for this project that are an equal match for the NSF award.